Engagement of early-career and diverse scientists in international science on Archaea at the International Conference on Geo-Omics of Archaea; October 25-27, 2019; Shenzhen, China

This grant award will support the participation of fifteen U.S. students, postdocs and/or early-career scientists in an international conference at the cutting edge of environmental microbiology. It will enable vital networking for the participants, opportunities for initiating new collaborative research with international colleagues, and the advancement of research and discovery by U.S. scientists. The conference will include scientists from many countries, including the USA, Germany, Netherlands, France, Austria, Spain, Australia, and China. The topics address areas of basic scientific research, as well as the role of archeal microorganisms in as diverse as the production of natural gas and microbiome contributions to human health and agriculture.

A group of world experts is organizing the International Conference on Geo-Omics of Archaea (ICGOA), to be held in Shenzhen, China from October 25th to 27th, 2019. The grant will help advance U.S. efforts in conducting research into fundamental questions related to the biology, physiology, diversity, biogeochemistry, ecology and evolution of Archaea. Participants will also be invited to participate in one or more synthesis manuscripts describing key advancements in areas of Archaeal biology. To maximize impact on broadening participation and development of science excellence in the U.S., funding support: (1) members of underrepresented groups in science; (2) graduate students and/or postdocs; and (3) early-career Assistant Professors.